NSF Lab Science Scholarships

This project is providing scholarships to students from underrepresented and soci-economically challenged groups recruited from local high schools, to pursue degrees in chemistry, physics and environmental science. This institution is introducing scholarship recipients to research in a multi-disciplinary research intensive first-year seminar to increase their interest in science. Additional efforts are being made to create a passion for science by offering them a summer research internship, establishing a cohort of like minded students, peer mentoring, community service opportunities and facilitating participation in meetings and conferences.

The intellectual merit of this project is strengthened by increasing the enthusiasm of students from underrepresented groups through additional attention and counseling. The broader impact lies in its impact on local high schools and in increasing the number of students entering professional and graduate schools. The program is helping to address regional and local workforce shortages in the sciences.